Fundamental Groups and Absolute Galois Groups

The Principal Investigator studies fundamental groups and absolute
Galois groups of varieties, especially in finite characteristic. In
particular, he investigates the fundamental groups of affine curves over
an algebraically closed field of finite characteristic; the absolute
Galois groups of function fields of curves over non-algebraically closed
fields of finite characteristic; and the fundamental groups and absolute
Galois groups of higher dimensional varieties over algebraically closed
fields of arbitrary characteristic. This study is in large part guided
by possible generalizations of Abhyankar's Conjecture for curves, which
the Principal Investigator has proven. A major goal is to determine the
properties of the fundamental groups and absolute Galois groups in
question, and to determine which finite groups are quotients of these
profinite groups, in order to obtain greater insight into the algebra
and geometry of these spaces. Methods include formal patching,
embedding problems, cohomology, valuation theory, and group theory.

The area of this project relates aspects of algebra and geometry in a
way that makes it possible to solve problems that would be intractible
in either field alone. The linkage between the algebra and geometry
arises from geometric spaces that are defined by algebraic equations.
These spaces can have complicated patterns of symmetry, which manifest
themselves both in the algebra and the geometry. This project seeks to
understand what types of symmetries can occur in the context of these
spaces, and how spaces with one type of symmetry can relate to a given
space with another type of symmetry. These spaces are in many cases
defined with respect to an algebraic system in which a particular prime
number plays a special role; and the properties of those spaces can be
interpreted as giving information about the solvability of equations
involving prime numbers.